Advanced Biotechnology Education Project

9454642 Werner This project is developing coordinated high school and 2-year college biotechnology curricula. Supporting activities include teacher and faculty training, industry mentor education, program materials development, job shadowing, and the recruitment and retention of underrepresented groups of students. Principal collaborators are a two-year college, high schools, 4-year colleges and universities, biotechnological industry, government, and public schools. Biotechnology programs are being articulated for different educational levels, and major developments include classroom and multimedia materials. Also, developed materials are being disseminated through various media, such as publications, videos, electronic linkages, workshops, and conferences.